CAREER: Compiler and Run-time System Support for Modern Hardware

To achieve the best performance on modern computers, one must
understand and exploit the interactions between program behavior,
run-time systems, and hardware. This research explores compiler and
run-time system support for improving load-value prediction and for
reducing the energy consumption of programs. Load-value prediction
exposes instruction-level parallelism in programs by allowing loads to
execute in parallel with the instructions that depend on it. Energy
reduction techniques reduce the energy requirements of programs
without significantly degrading performance.

Broadly speaking this research considers two kinds of techniques: (i)
Compiler techniques that use easily-available information in programs
(such as type information) to transform or annotate code to make
better use of hardware; (ii) Run-time system techniques that
reorganize and annotate data to make better use of hardware. This
research will also consider new hardware mechanisms for load-value
prediction and energy consumption that can be exploited in software.